Travel: NSF Student Travel Grant for 2024 ACM Symposium on Parallelism in Algorithms and Architectures (SPAA)

The Association of Computing Machinery (ACM) Symposium on Parallelism in Algorithms and Architectures (SPAA) is one of the premier annual research conferences on parallel algorithms and the foundations of parallel computing. It is a conference of very long standing that has continued to play a formative role in the field. This award aims to increase the impact of this conference on students, particularly those from under-represented groups, by encouraging and enabling their participation, especially in cases where travel expenses would otherwise preclude their attendance.

Concretely, this project assists students to attend the SPAA June 17-21, 2024 in Nantes, France, by providing $1,000 travel support to each of 15 students.